Optimizing in situ NMR and Probing Polyphosphate Role in Yeast Cytosol Regulation

9420307 Domach This project is on research to further develop a methodology for in situ nuclear magnetic resonance (NMR) spectroscopy to study cellular metabolism. The research focuses on three areas: (1) improving a cultivation system to allow growth rate control and lower cell densities in order to enhance the signal to noise ratio, and thus the NMR results; (2) enhancing the overall system by incorporating on- line pH, optical density, fluorescent and dissolved oxygen measurements; and (3) utilizing the system to investigate polyphosphate metabolism in yeast. ***